SDCI NMI: Improvement of the Swift Science and Engineering Workflow Environment

National Science Foundation
NSF Software Development for Cyberinfrastructure (SDCI) Program
Office of Cyberinfrastructure

Proposal Number: 0721939
Principal Investigator: Michael Wilde
Institution: University of Chicago
Proposal Title: SDCI NMI: Improvement of the Swift Science and Engineering Workflow Environment

Abstract

Swift is a system for Fast, Reliable, Loosely Coupled Parallel Computation. It supports applications that execute many tasks coupled by disk-resident datasets - as is common, for example, when analyzing large quantities of data or performing parameter studies or ensemble simulations. The open source Swift software combines a simple scripting language to enable the concise, high-level specifications of complex parallel computations, mappers for accessing diverse data formats in a convenient manner, and an execution engine that can manage the dispatch of many (100,000+) tasks to many (1000+) processors, whether on parallel computers, campus grids, or multi-site grids.